Research Experiences for Undergraduates in Electrical Engineering Focused Around the CSU-CHILL Polarimetric Doppler Radar Facility

9322446 Chandrasekar This Research Experiences for Undergraduates site is focused around the Colorado State University-CHILL facility. Ten students (mostly at the end of junior year) will join research programs at the facility. Following the summer research program, the students will be prepared and supported adequately with research resources if they want to continue senior projects in their own institutions via computer access, data support and any other possible support that can be envisioned. At the end of the project, students are required to write a formal report and to present their results in seminars. ***